The Role Learning in Perceptual Organization of Complex Images

Abstract

IIS-9907141
Sarkar, Sudeep
University of South Florida
$73,407 - 12 mos.

The Role of Learning in Perceptual Organization of Complex Images

This is the first year funding of a three year continuing award.
Perceptual organization is the ability to efficiently group low-level
primitives, such as pixels or edge segments or regions, so as to form
object hypotheses with minimal domain knowledge. This process is an
essential link between the noisy low-level segmentation processes and
the sophisticated, computationally expensive, object recognition
processes. This work will address three major scientific issues
related to perceptual organization in computer vision: (i) How to
efficiently form large groups of extended low-level primitives by
assembling small groups of features (grouplets)? The concept of graph
spectra is an ideal mechanism for this purpose. (ii) How to encode
the dependency of grouping parameters on image statistics? Joint
probability distributions encoded as Bayesian networks offer an
efficient abstraction. (iii) What is the role of learning in
perceptual organization? The specific roles of learning explored would
be threefold: (a) learning the image to grouping parameter mapping,
(b) learning the forms of the groups, and the associated hierarchy,
from object models, and (c) learning the primitive type, such as
corners, textured-regions, or edges, that is appropriate for a domain.